Catalysts for Methane Vehicles

This is an award to support research on reducing the content of methane in exhaust gases from vehicles using methane as a fuel. The objective of this project is to determine the feasibility of combining the methane-activating function of partial oxidation catalysts and the strong chemisorptive properties of deep oxidation catalysts into catalysts that will be active for deep methane oxidation at temperatures significantly lower than now necessary to be used with currently used platinum catalysts. Exhaust gases from combustion of methane in vehicles utilizing methane as a fuel contain significant amounts of methane. This is likely to impede movement toward acceptability of vehicles that utilize methane for a fuel. Results of this project are expected to determine whether the passage of exhaust gases through the catalysts synthesized in this project will reduce the emissions of methane from vehicles using it as a fuel. The proposal leading to this award was submitted in response to NSF 92-30, Small Business Innovation Research under Topic No. 25d, Environmental Systems.